Mathematical Sciences: Problems in Low Dimensional Topology and Combinatorial Group Theory

Frohman intends to pursue the solution of problems in three- manifold topology and geometry, and in combinatorial group theory, using tools from minimal surfaces, group actions on R- trees, and real algebra. The application of techniques from such widely separated areas is indicative of the ultimate unity of mathematics.